Enhancing Simulation Analysis Reporting Using Natural Language Feedback

This project is an exploration of the relationships and the joint use of simulation and natural language. Conceptual structures are used which can represent the structure and meaning of sentences as well as basic mathematical concepts. Sentences can be transformed to these structures, and, via language generation, the structures can be transformed into mathematical equations. An example is illustrated using a text description of a nanoplankton respiration model. Previous research by this investigator has concentrated on the translation of text to equations suitable for numerical simulation. The current research concerns mapping in the opposite direction, generating natural language text instead of the traditional numerical output from a simulation run. In this manner, the analyst will be able to textually describe a physical system and then obtain textual responses that describe the system behavior.